Gap Junctions and Cellular Communication in Spermatogenesis

9722987 Risley Spermatogenesis is dependent upon a poorly understood, complex network of hormonal, paracrine, and contact-mediated cellular interactions, the disruption of which may lead to temporary or permanent infertility. The proposed research will investigate the roles of gap junctions in mediating intercellular communication in the seminiferous tubules of testes. The working hypothesis is that gap junctions, assembled from diverse connexins, provide multiple, unique communication pathways between Sertoli and spermatogenic cells in the seminiferous epithelium. To evaluate this overall hypothesis, connexin gene expression, assembly, and function in the seminiferous epithelium will be investigated. Connexin mRNA expression in spermatogenic cells, Sertoli cells, and peritubular cells will be studied using RT-PCR and in situ hybridization. Immunocytochemistry and Western blotting will be used to assess connexin protein expression and assembly. The influence of reproductive hormones on connexin gene expression and connexin assembly will also be studied using rats that have been hypophysectomized and placed on hormone-replacement therapy regimens. Finally, microinjection of various tracer dyes into seminiferous tubules will be employed to define gap junction coupling pathways at different tubule stages, and to determine if different junctions have unique permeability properties.